Experimental Studies of Graphene Layers

-----------------Technical abstract---------------------

Graphene, the recently isolated two dimensional crystal of carbon,
possesses extraordinary electronic properties arising from a low energy
excitation spectrum which mimics ultra relativistic particles. This
makes it possible to achieve high quality field-effect transistors and
to observe the quantum Hall effect at room-temperature. The object of
this work is to access the intrinsic properties of graphene by isolating
it from the environment and to explore the emergence of new physical
phenomena in response to the controlled introduction of chemical or
mechanical perturbations. We will seek to understand and minimize
environmental effects on the electronic properties by exploring the
influence of various substrates as well as that of removing the
substrate altogether. We will explore the role of interactions,
boundaries, magnetic field and dopants on the quasiparticle spectrum in
search of emergent phases and new physical properties. We will
investigate the feasibility of fabricating graphene nano-devices based
on these properties. The primary experimental probes in this project
include scanning tunneling microscopy and spectroscopy atomic force
microscopy and magneto-transport. Work on this project will be carried
out with the active participation of students at the undergraduate and
graduate level and with post doctoral fellows.

----------Non-technical abstract------------------------

The recent discovery of graphene, a two-dimensional crystal consisting
of a single atomic plane of graphite, gives access to extraordinary
electronic properties arising from charge carriers that mimic
ultra-relativistic particles. Because of the low dimensionality and the
possibility of attaining charge transport with exceptionally high
carrier mobility, graphene holds the promise of becoming the building
block for a new generation of nanoelectronics devices. The goal of this
project is to access the intrinsic properties of graphene by isolating
it from the environment and to explore the emergence of new physical
phenomena and new phases of matter in response to the controlled
introduction of chemical or mechanical perturbations. We will explore
the feasibility of fabricating graphene nano-devices based on these
properties. The primary experimental probes will include scanning
tunneling microscopy and spectroscopy, atomic force microscopy and
magneto-transport. Work on this project will be carried out with the
active participation of students at the undergraduate and graduate
level. Work on this project will be carried out with the active
participation of students at the undergraduate, graduate and post
doctoral levels. They will receive training in cutting edge research and
in the use of state of the art equipment that will prepare them for
filling demanding technical and research positions.